Regional Computer Science and Computation Research and Educational Proposal Writing Workshop to be held June, 29-30, 1989, in San Juan, Puerto Rico

The purpose of the proposed project is to stimulate competitive research and the development of top quality academic programs in computer science and related fields. To attain this goal the Ana G. Mendez Educational Foundation proposes to carry out a two day Regional Proposal Writing Workshop for computer science and engineering faculty of all major colleges and universities in Puerto Rico. The Workshop will be held June 29-30, 1989. The workshop will be conducted by NSF program representatives and AGMEF specialists. It will focus on 1) information on sources of funding within NSF, 2) developing plans for CISE support programs 3) improving the understanding of participants of the mechanics of proposal writing, and 4) developing proposal writing and evaluation skills. Eighty faculty from all major institutions will participate. The project will be coordinated by the Office of the President of the AGMEF. An evaluation of the project will include a questionnaire and a follow up survey to determine the number of proposals actually submitted to the Foundation.